Presidential Faculty Fellow

9350262 Blum Variations in radiogenic and stable isotope ratios o;f rocks, soil and water are used to fingerprint geochemical reservoirs, determine the chronology of geological processes, and gain a more indepth understanding of the geochemical and environmental processes that take place on the earth's surface and in its interior.